Saint Vincent College Young Scholars Program

9352955 Turner Saint Vincent College will conduct a three week residential Young Scholars program for 32 students entering the 9th or 10th grades. Participants work on small group research projects in environmental chemistry,computer graphics, comparative economic systems and atmospheric physics. Career explorations, field trips and an "Ethics in Science Forum" will address or reinforce issues related to the projects disciplinary areas. Follow up activities include year round continuation of summer research projects and a one day symposium. ***